RET SITE: Collaborative Learning Through Real-Time Embedded System Design

This award provides funding for a three year continuing award to Kansas State University for the support of a Research Experience for Teachers Site Program entitled, "Collaborative Learning Through Real-Time Embedded System Design, " under the direction of Dr. Mitchell Neilsen. Ten teachers from both urban and rural schools in Kansas will participate in a four-week summer research experience on campus, followed by active participation in the Kansas Robotics League during the rest of the year.